Some Coding Techniques for Computer Applications

Some Coding Techniques for Computer Applications
Abstract

This research investigates the design of new coding techniques for balanced codes and Gray codes applicable to computer and VLSI systems. In particular the research will improve the performance of balanced codes by studying fast encoding/decoding schemes, and investigate some simple mathematical functions which generate disjoint Hamiltonian circuits, to find good properties of Gray codes and generalized Gray codes in mixed radix systems,

The research in this proposal has potential applications in many areas such as reducing noise in VLSI systems, fault masking in data lines, maintaining data integrity in write-once memories, obtaining delay sensitivity in asynchronous systems, data encoding in some crypto-systems, A/D converters, data compression, resource placement in
parallel systems, and efficient combinatorial algorithm design.